A Statewide Satellite High-Bandwidth Internet Delivery System with Integrated Video-on-Demand to Georgia's Educational Community

This award was made under Section A. of the program announcement, NSF 98-102. The proposal maximizes available telecommunications access combined with emerging technologies and applications to enhance K-12 instructional tools. The twenty-fold increase in bandwidth to sixteen K-12 schools and library desktops in the state of Georgia utilizes a hybrid network of state-deployed satellite receiving systems for downlink capability and an already available ground Internet network (PeachNet) for uplink capability. Collaborators on the project includes EduLinc, Inc., Georgia Public Broadcasting, Georgia Board of Regents, and the following departments under the state government: Education, Technical and Adult Education, and Administrative Services.